Noise in Fiber Ring Lasers

9423737 An experimental and theoretical study of the properties of noise in mode-locked fiber lasers, will be conducted. It is likely that these lasers can be made to operate at the quantum limit, at least within certain spectral windows, where classical sources of noise are suppressed to an extent that quantum noise is predominant noise source. ***